ITR: Unified Graphical Models of Information Extraction and Data Mining with Application to Social Network Analysis

This project aims to improve our ability to data mine information
previously locked in unstructured natural language text. It focuses on
developing novel statistical models for information extraction and data
mining that have such tight integration that the boundaries between
them disappear---resulting in a powerful unified framework for
extraction and mining. Current information extraction methods populate
slots in a database by identifying relevant subsequences of text, but
they are usually unaware of the emerging patterns and regularities in
the database. Current data mining methods begin from a populated
database, and they are often unaware of where the data came from, or
its inherent uncertainties. The result is that the accuracy of both
suffers, and significant mining of complex text sources is beyond
reach. This project uses probabilistic graphical models that make
extraction and mining decisions in the same probabilistic currency,
with a common inference procedure. Such models promise significant
gains in accuracy and capability, as well as an opportunity for deeper
understanding of the role of high-level, top-down patterns in natural
language processing, and the role of low-level, bottom-up language data
in symbolic processing. The project grounds this work in two
real-world applications domains: scientific research and government
information. The extraction and mining of large-scale databases in
these domains will have broad impacts by providing useful,
constantly-updated Web resources, by enabling insights into government
efficiency and the flow of scientific ideas, and by making databases,
analyses and source code publicly available.
http://kdl.cs.umass.edu/projects/unified-graphical-models.html